Integration of Fourier Transform Infrared Spectrophotometry Into the Chemistry Curriculum

The Departments of Chemistry and Biology are purchasing a Fourier Transform infrared spectrometer (FTIR) for use in chemically oriented instruction in both departments. Students learn the use of computer controlled FTIR spectrophotometry for the elucidation of organic structures as well as data manipulation and analysis. The high sensitivity and analysis speed of the FTIR allow use for a greater variety of experiments than was possible with prior instruments. The computer search capabilities provide students with an understanding of the identification process inherent in infrared analysis and demonstrate the usefulness of computer database interfacing to instruments. In the organic chemistry laboratory, students use the instrument to identify the key chemical compounds involved in the multi-step synthesis of lidocaine from 2,6-dimethylnitrobenzene. In the instrumental analysis course, students study both the theoretical and practical aspects of FTIR. In the physical chemistry course, an experiment is performed to study the rotational fine structure of the infrared vibrational spectra of hydrogen chloride and deuterium chloride. In addition, a general education course in introductory chemistry for non-majors provides students with experiences in FTIR analysis involving such procedures as the purification of aspirin.